Discrete Location Theory and Its Application to Peer-to-Peer Computing

Discrete location theory is concerned with combinatorial optimization
problems in which spatial considerations play a prominent role. For
example, one basic discrete location problem asks for a specified
number of points in a given metric space to be marked so that the sum,
over all points, of the distance to the nearest marked point is
minimized. Peer-to-peer computing is an emerging discipline concerned
with the seamless interconnection of dynamic collections of nodes for
the purpose of sharing computational resources such as bandwidth,
storage, and CPU. A good first-order model of peer-to-peer networks
assumes that the nodes reside in a metric space, and that the cost of
communication between a pair of nodes is given by the corresponding
distance in the underlying metric space. Because the internode
distances in peer-to-peer networks tend to vary significantly, spatial
considerations play a prominent role in peer-to-peer computing. This
project addresses a number of basic questions in discrete location
theory, emphasizing questions that arise in applications to
peer-to-peer computing.

Discrete location theory is not a new subject, having been studied
within the operations research community for decades. Many of the
basic problems in this area are NP-hard, so practitioners have
generally resorted to heuristics in order to search for optimal or
near-optimal solutions. Unfortunately, with few exceptions, the
solutions returned by these heuristics can be arbitrarily far from
optimal. In recent years, there has been an explosion of interest in
the design and analysis of provably good approximation algorithms for
NP-hard optimization problems. This research has shed considerable
light on the approximability of a number of basic discrete location
problems, for example, establishing that the optimal solution to the
facility location problem can be approximated to within a factor of
1.52 in polynomial time, but that achieving a factor of 1.463 would
violate a standard hardness assumption. Given such theoretical
advances, it is natural to ask whether these provably good
approximation algorithms are preferable to existing heuristics in
practice. For the most part this is not the case, since the running
times of these approximation algorithms, while polynomial, tend to be
considerably higher than those of existing heuristics. For the
discrete location problems addressed in this project, the primary
objective of this project is to develop constant-factor approximation
algorithms that are comparable to (or improve upon) existing
heuristics in terms of running time and ease of implementation.

Peer-to-peer computing is a young field with obvious potential, but
significant technical challenges remain to be addressed before this
potential can be realized. More scalable than client-server,
peer-to-peer enables a wide-range of large-scale applications that
cannot be supported by existing server farms. Furthermore,
peer-to-peer computing holds the promise of delivering
supercomputer-like performance to the average user. But before such
lofty goals can be achieved, existing peer-to-peer systems need to be
significantly refined and extended in order to comprehensively address
issues related to locality, concurrency, fault tolerance,
self-stabilization, heterogeneity, cost sharing, and security. This
project investigates novel approaches to the design of practical and
provably efficient peer-to-peer infrastructure, emphasizing
locality-related concerns.